Digital Government: Analysis of Barriers to Local Government Adoption of Digital Government and Strategies to Overcome the Barriers

EIA-0131554
Donald F. Norris
University of Maryland Baltimore County

Digital Government: Analysis of Barriers to Local Government Adoption of Digital Government and Strategies to Overcome the Barriers

This is a proposal to explore the uptake of IT by local government, in particular the provision of transactions and services over the Web, and identify solutions to hurdles which are found. Focus groups will be established consisting of local government Chief of Information Officers, Mayors and other elected and appointed individuals. This project is in collaboration with the Office of Telecommunications and Information Applications of the National Telecommunications and Information Administration, part of the US Department of Commerce.